Flood of Mud: The Roanoke River -- Past and Future

"Flood of Mud: The Roanoke River -- Past and Future" is a video project examining long-term impacts of historic land clearing and erosion on temperate rivers and their floodplains. The 17-minute video targets youth and adult visitors to the North Carolina Aquariums. The video highlights the NSF-funded research project EAR-0105929, "Modeling the Impacts of Post-settlement Sediment Deposition on Floodplain Vegetation," which applies paleoecological and dendrochronological methods and computer modeling to examine and predict the impact of sedimentation on forest composition, productivity and functioning of the lower Roanoke River in North Carolina.